Project to Support Chemistry-based Technician Education

The future of chemistry-based technician education depends upon building a world-class, national network that connects local activities and nurtures sustainability. The American Chemical Society (ACS) provides leadership in these technician activities, by building on existing chemistry-based technician education activities at ACS, communicating with other chemistry-based technician education activities, and establishing a foundation upon which new activities that support excellence in two-year college chemistry education can be developed. To accomplish this goal, the project (1) develops a web-based system to update, validate, maintain and disseminate performance-based voluntary, industry, skill standards; (2) establishes a network of consultants to build and maintain local partnerships as a basis for meeting technician education needs; (3) develops an on-line national clearinghouse for information in chemistry-based technician education; (4) provides professional development for two-year college faculty; and (5) provides career information to attract students to become technicians in chemistry-related industry.